GOALI: Theory, Design and Simulation of Ultrafast Digital Circuits Using Quantum Electronic NDR Devices

9618417 Mazumder Uqing negative differential resistance (NDR) device technologies, researchers at the Univ. of Michigan will develop the theory of circuit design; b. design accurate and fast circuit models and algorithms, and c. study systems-level issues in the design of large computational and signal processing circuits. Such NDR device technology may well supersede existing conventional microelectronic device technology as device dimensions and packing density requirements continually push the state-of-the-art. ***